Sound Recording and Analysis Equipment for the Study of Animal Behavior

Sound recording and analysis equipment (high quality cassette tape recorders, microphones, a sound pressure level meter, and accessories) will allow both majors and non-majors to study acoustic signals of animals by recording, quantifying, and comparing them. A computer- based sound analysis facility will permit immediate analysis of tape recordings, and the students will then be able to quickly compare their data with a larger data set and with published results from other workers. The equipment will be used both in formal laboratories and in independent student research project projects. The university will provide 50% matching funds.